Collaborative Research: Sentiment-Driven Digital Twins for Forecasting and Understanding Community Hazard Recovery

When natural disasters such as earthquakes and wildfires strike, communities experience not only immediate physical damage to infrastructure but also long-lasting psychosocial impacts. The way residents perceive risk, share information, and respond to a disaster influences how effectively a community recovers. However, traditional disaster recovery models and planning tools primarily focus on physical rebuilding, often overlooking these important human factors. This award supports research that serves the national interest by developing sentiment-driven digital twins that integrate public sentiment with infrastructure damage and recovery data to improve understanding and forecasting of community hazard recovery. By combining social, physical and economic information, this project will create new tools for monitoring evolving community recovery conditions and forecasting recovery trajectories. These capabilities will support emergency managers and community leaders by providing actionable insights for recovery planning. Ultimately, the project will advance the science of disaster resilience while contributing to more resilient communities that are better prepared to adapt to and recover from future natural hazards.

This project develops a quantitative framework that integrates multisource data on community sentiment, hazard damage and socioeconomic indicators to reveal how social psychology influences community recovery. The research encompasses two interconnected objectives focused on data-driven understanding and predictive modeling. First, the project will curate and analyze historical multi-hazard datasets that include civil infrastructure damage, socioeconomic indicators, and spatiotemporal sentiment data extracted from public digital platforms. Using information-theoretic approaches, the project will identify the predictive mechanisms linking community sentiment and recovery processes. Second, the project will develop an integrated digital twin using Bayesian inference. This computational framework will assimilate physical damage and sentiment data to forecast near-term and medium-term community recovery trajectories. It will also generate indicators of emerging psychosocial risk to support recovery monitoring and planning. By establishing community sentiment as a measurable and predictive component of disaster resilience, this project advances fundamental understanding of community recovery while providing new computational tools for hazard resilience modeling.